Compact Tunable Infrared Laser Based Spectroscopic Sources for Chemical Analysis

The objective of the proposed STTR effort is to develop compact infrared laser based gas sensors for the identification and monitoring of molecular species. Ultimately, a series of infrared sources, each designed to monitor a particular one or two molecular working the region form 3 to 6 um is planned. There is a demonstrable need for gas monitoring in variety of application an IR spectroscopic methods offer significant advantages for versatile in situ detection of a large number of species. However, existing system such as FTIR are not portable, are not rugged, and can be influenced by any backgrounds effects. The new systems will incorporate solid-state technology to produce a compact reasonable rugged, portable systems as a reasonable cost with high spectral resoultion for certain species identification and accurate absorption measurement that can be left unattended for long periods of time while reporting gas concentrations by telemetry. Results of the research could have commercial application in industrial process monitoring and pollution control.